Development of Undergraduate Communications Laboratory for Electrical Engineering Majors at University of Denver

This Communications Laboratory improvement project upgrades current facilities by incorporating real-time simulation of communications systems and networks. The real-time end to end simulation capability provides students with the hardware and software tools necessary to support subsystem level design (e.g., channel equalization digital filters); additionally, system performance evaluation (e g., bit error rate measurement) may be accomplished via a protocol analyzer in conjunction with workstation interaction. The simulation capability allows evaluation of designs at baseband and RF/IF frequencies. Complete student team projects include data generation (e.g., source coding), transmission modulation selection/channel coding, and demodulation. Students gain the theoretical knowledge and hands-on laboratory experience to enter the technology work force in the communications industry as a systems engineer and/or a network analyst.